Oceanographic Instrumentation - 2001

0096862
Walden
This award to Woods Hole Oceanographic Institution in Massachusetts provides instrumentation to significantly improve the oceanographic research capabilities of the research vessels Atlantis, Knorr and Oceanus, three ships operated by WHOI as part of the University-National Oceanographic Laboratory System research fleet. Specifically, this award will provide new sensors for CTD operations on all three ships, a new Chirp echosounder system for R/V Atlantis, upgrades to the multibeam echosounders on R/V Knorr and Atlantis, spare parts for a lowered acoustic Doppler current profiler, a new marine magnetometer, and refurbishing of a winch for deploying and recovering deep ocean moorings. These improvements will be of substantial advantage to marine scientists using these three ships in their research during 2001 and future years.
***